East Asian Monsoon History: Testing Hypothesis of Monsoon Response in the South China Sea

This study will obtain a 6 Ma record of isotopic, faunal, and lithologic/chemical indicators from ODP Site 1146 in the South China Sea. The multiple proxies will be used to develop a timeseries at 2 ka resolution of the East Asian winter and summer monsoon. The record will be used to test the response in both intensity and timing of the seasonal monsoon to solar forcing and to changing Northern Hemisphere glaciation and other boundary conditions including uplift of the Isthmus of Panama.